Decadal Variability of Subtropical Mode Water, Gulf Stream Separation and Large-Scale Atmospheric Fields in the N. Atlantic Ocean from 1954-1999

Joyce / OCE-9818465
Recent observations for the World Ocean Circulation Experiment (WOCE)
period, the 1990s, will be used to extend an existing time series of the North
Atlantic Circulation. The goal is to examine if the Subtropical Mode water, the
Gulf Stream position and continue to co-vary with large scale atmospheric heat
and buoyancy forcing and a North Atlantic Oscillation index. The feedback
hypothesis to be tested is that the Gulf Stream separation point is influenced by
variability of the southward transport of Labrador Sea Water which then alter
storm racks and atmospheric forcing so as to negatively damp Labrador Sea
Water production.